Paleoanthropological Investigations of the Semliki Valley Zaire

This award is an emergency grant to preserve some valuable research equipment consisting of vehicles and camping supplies by moving them out of harm's way (warfare in the region and a breakdown of civil authority) in Zaire to Uganda, where they will be preserved for future research. The research that will be done in the future involves looking for fossil evidence of human evolution in the area.